Symposium on Prematurity on Scientific Discovery to be held in Berkeley, California, December 1997

This symposium, to be held on the campus of the University of California, Berkeley, addresses the idea of prematurity in scientific discovery from the perspective gained by twenty-five years of research on science. The conference will offer a forum for the presentation, discussion, and critique of the concept of `prematurity` that will assess the state of knowledge about the proposition and will stimulate new research. Speakers will be drawn from Africa, Europe and North America to talk about prematurity in such diverse areas of science as Darwinian and Mendelian theories, evolutionary biology, genetic exchange in bacteria, and the work of specific researchers such as McClintock and Fleck.